Jet Vapor Deposition of Ultra-low Loading Platinum and Ruthenium Oxide Catalysts on Polymer Electrolyte Membranes for Fuel Cell Application

Polymer Electrolyte Membrane Fuel Cell (PEMFC) technology has great promise for electric vehicle transportation. State-of-the-art PEMFC technology, however, requires heavy loadings of expensive noble metal catalysts which make them too expensive for automotive application. Significant reduction of PEMFC cost could potentially be realized with high efficiency, ultra-low loading catalyst electrodes. Jet Process Corp. proposes to use our novel, patented, award-winning, pollution-free Jet Vapor Deposition (JVD) process to address this problem. JVD is capable of high rate, highly efficient deposition of metal and metal oxide films and nanoscopic particles. They will deposit ultra-low loadings of high surface area, nanometer-size platinum and platinum/ruthenium oxide electrocatalyst particles directly onto the surface of Nafion (DuPont) polymer electrolyte membranes. In collaboration with International Fuel Cells Inc., a leading U.S. supplier of fuel cell technology, the researchers will test and evaluate Phase I samples to determine the catalytic activity of these ultra-low loading electrodes. They will also develop preliminary studies on process scaleup and production economics.